Radio Astronomical Studies of the Diffuse Interstellar Medium

Dr. Carl Heiles will continue his wide ranging investigations of the diffuse interstellar medium primarily using radio astronomical techniques. He will continue extensive observations of Zeeman splitting of the 21-cm neutral hydrogen line, concentrating on extensive maps of interesting regions; attempt the measurement of linear polarization of the 18-cm lines of hydroxyl; study the morphology and kinematics of large interstellar shells and supershells by detailed mapping of the 21-cm line and diffuse radio recombination lines; investigate the fundamental topology of the neutral interstellar medium by intensive analysis of existing data; perform a blind search for anomalous velocity features, such as may be due to rapidly expanding shells; investigate the global properties of the diffuse radio recombination line emission and the Warm Ionized Medium by performing a large survey in the Galactic plane; perform a comprehensive and detailed investigation of globules in ionized hydrogen regions by using both molecular and optical emission lines; confirm a possible detection of the 327 MHz line of deuterium; and launch a search for the 310 MHz lines of deuterated hydroxyl.